Mathematical Studies in Quantum Mechanics

This project concentrates primarily on the investigation of
mathematical problems that arise in the study of molecular quantum
mechanics. The nuclei in a molecule have large masses. Consequently, their
motion is approximately described by classical mechanics. By comparison,
electron masses are very small, and electrons adjust their quantum
mechanical states rapidly in response to the much slower motion of the
nuclei. This intuition is the basis for Born-Oppenheimer approximations.
Professor Hagedorn, his graduate students, and his collaborators will
study situations where Born-Oppenheimer approximations are not
sufficiently accurate to describe all the phenomena of interest. For
example, they plan to develop accurate "surface hopping models" to include
the possibility of electrons making quantum mechanical transitions. Models
of this type have been proposed in the chemistry and physics literature,
but they have not been derived from first principles. The main goal of
this project is rigorously to derive and implement such a model.

Motion of electrons and nuclei in molecules are well described by
solutions to the Schrodinger equation. No one has ever solved the
Schrodinger equation for a molecule, and our theoretical knowledge of
chemistry and molecular physics has come from approximations to solutions.
The principal goals of this project are to study the several commonly used
approximations and to develop improved approximations that will be useful
to chemists and physicists. In addition to theoretical understanding,
potential uses of this basic research are the synthesis of new chemical
compounds, the design of new catalysts, or the design of new drugs.